Studies on the Role and Regulation of Mammalian Harderian Glands

Harderian glands located in the orbit behind the eyes, are found in almost all vertebrate species. Curiously, their regulation and function are unknown although they appear to have both exocrine and endocrine functions. In birds, at least, they are known to be involved in the immune response to infections. In mammals (golden hamsters), it has been determined that they can play a role in growth and development and also modify the activity of the thyroid and pineal glands. They respond to light and dark and to the sex hormones. Dr. Hoffman plans biochemical and physiological studies to obtain further information on the function and regulation. Since these glands synthesize potent biochemical compounds in common with the retina and pineal gland, he believes that close interrelationship exist among these ancient structures and with regard to responses of mammals to daily and seasonal changes in daylength. The results are important in understanding the regulation of metabolic and reproductive rhythms in vertebrate animals.